Spectroscopic Studies of Biomass Burning Emissions

Biomass burning is a useful land-management tool, a key component of important agricultural systems, and a source of renewable energy. Biomass burning is also a significant source of atmospheric trace gases and particles. Uncertainty in the initial characteristics and transformations of these emissions is a major limiting factor in models of atmospheric chemistry, radiative transfer, and global climate change. In this project, an airborne Fourier transform infrared (FTIR) spectrometer will be used to measure a wide variety of stable and reactive emissions in biomass burning smoke. Measurements will include: carbon dioxide, carbon monoxide, methane, formaldehyde, 2-hydroxyethanal, methanol, phenol, acetic acid, formic acid, sulfur dioxide, carbonyl sulfide, nitric oxide, nitrogen dioxide, nitrous oxide, ammonia, hydrogen cyanide, ethene, ethane, ethyne, propene, isobutene, monoterpenes, ozone, water, and particle ammonium nitrate. These measurements will be made during the year 2000 burning season as part of the Southern Africa Fire Research Initiative (SAFARI-2000), an African-European-US collaborative effort. This study will determine the concentration of oxygenated organic molecules in the initial emissions from tropical fires, and examine how such emissions impact the photochemistry of smoke plumes. The project will also involve an intercomparison of the FTIR with a number of other gas measurement techniques using laboratory fires.